DNA Structure and CRP-Mediated Promoter Activation

cAMP receptor protein (CRP) is one of the better characterized gene activators and provides an excellent model with which to study the mechanisms involved in gene regulation. CRP:cAMP complex binds a select group of promoter sequences and regulates the activity of gene controlled by those promoters. This project provides a research plan designed to utilize mutant forms od CRP to examine the mechanistic role of both CRP:RNA polymerase interaction and CRP-mediated DNA bending promoter activation. These experiments utilize both an acrylamide-based DNA mobility assay and an intramolecular DNA ligation assay. A second aspect of this work is designed to investigate the response of the wild-type and mutant forms of CRP to changes in template DNA structure. These studies will characterize the effect of varying DNA superhelical density on both CRP binding and CRP-mediated lac promoter (lacP) activation in vitro. CRP:DNA binding constants will be determined in experiments that utilize a small (877 base pair) covalently closed circular DNA containing lacP. The results generated in vitro will be assessed in vivo in studies that monitor, through RNA:DNA hybridization and integrative recombination assays, the effect of different culture conditions on both plasmid-born lacP activity and plasmid superhelical density. A major focus of biological research is the study of mechanisms involved in regulating gene expression. Productive interaction of RNA polymerase (RNAP) with promoter DNA sequences is a ubiquitous requirement. Studies dealing with the individual regulatory properties of different genes have uncovered an important class of DNA binding proteins, termed gene activator proteins, that function to promote the association of RNAP to select promoters. This well written proposal is submitted by a very experienced but beginning investigator.